Workshop - Thermal Management of 21st Century Electronic System

ABSTRACT 9421143 Bar-Cohen The proposal is to partially support a three-day workshop on Thermal Management in 21st Century Electronic Systems in the Fall of 1995. The workshop will bring together experts in electronics thermal management with experts in electronics systems technologies to discuss opportunities and barriers/limits to the implementation of new concepts in electronics. A report of the workshop proceedings will be edited by the PIs and distributed to participants and interested parties within three months of the meeting.